Development of a High Resolution Detection System for the Precision Measurement of the Neutral Pion Lifetime at JLab

0079840
Gasparian
This award will support the construction and operation of
experimental detection equipment to perform the most fundamental
prediction of quantum chromodynamics (QCD) at low energy. Since the quality of existing measurements is not commensurate with the
precision of the theoretical prediction, a modern measurement at the
1.5% accuracy level would fill this important experimental gap, and
would test the prediction of the so-called axial anomaly at the
level of the theoretical precision. The experiment will measure the
decay width of the neutron pi meson via coherent photoproduction in
the Coulomb field of the nucleus, i.e., the Primakoff effect. The
experiment has been approved to run at Jefferson Laboratory with
high priority. The project involves approximately 14 senior
researchers from 12 institutions, seven postdoctoral fellows, and
eight graduate students, and represents an excellent educational
opportunity.